Science Enrichment and Career Opportunity Summer Workshop

This project, to be carried out on the campus of GMI Engineering & Management Institute, consists of two parts, an intensive three-(3) week summer workshop and nine (9) monthly follow-up activities during the school year. Students with high interest and potential will be identified and recruited from the schools of Genesee County. Emphasis will be placed on the recruitment of minorities and women. GMI has established two minority pre-college science and engineering programs, ASPIRE and AIM, with strong participation from school districts within the County. The workshop will involve a maximum of forty (40) students who willcommute daily to GMI, where they will participate in activities that involve basic mathematical concepts, communication skills, computer science, engineering design projects, science investigations, and simple research projects. The activities will focus on chemistry as an essential scientific discipline. A portion of the workshop (30%) will involve career awareness activities and field trips. Participants will observe scientists and engineers in the research and teaching environment. The follow-up activities involve nine (9) monthly meetings with students and teachers from Genesee County schools. These activities, consisting of dynamic speakers, films, field trips and competitive events, are designed to motivate and guide interested persons toward science and science-related careers.